Acquisition of a 400 MHz NMR Spectrometer for Chemistry Research

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) and Major Research Instrumentation Programs, the Department of Chemistry at Northern Arizona University will acquire a 400 MHz NMR Spectrometer. This equipment will enhance research in the following areas: the synthesis of modified amino acids; binding of metals to DNA; metal binding and transport in mammalian systems and plants; and mechanism of self-assembly.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as biochemistry and biotechnology.